Characterization and Transmission of a Virus from a Parasitic Wasp

This is a Research Opportunities for Women Career Advancement Award. The PI will use this award to expand into a totally new area, molecular biology of viruses, in order to pursue her longstanding interest in the host-parasite relationship between a parasitic wasp and its fruitfly host.